Acquisition of a Mid-Field Nuclear Magnetic Resonance Spectrometer

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions of molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The Department of Chemistry at the University of Iowa will use this award from the Chemistry Shared Instrumentation Program to help acquire a high-field NMR spectrometer. The areas of research that will be enhanced by the acquisition include the following: 1) Organofluorine chemistry 2) Novel natural products from fungi 3) Synthesis, spectroscopy and novel reactivity of metalloporphyrin compounds 4) Synthesis and chemistry of reactive organometallic complexes 5) Polymer synthesis and transition metal catalyzed organic reactions 6) Synthetic organic and natural products chemistry.